A Technology Exemplar: Post-Textbook UDL Materials

This proposal is for the development of technology-rich science curriculum exemplars for grades 3-6 based on Universal Design for Learning (UDL) principles. The project will create sufficient materials to test the effectiveness of the approach and provide an exemplar that can inspire additional content and further development. A rich set of professional development materials to support teacher implementation of UDL science curriculum in the classroom is planned. Probes are used for lab investigations and computational models are used for experimentation in virtual environments.

The products include seven two-week inquiry modules united by an energy theme and based on national standards. The modules engage students through driving questions, such as "Why are there clouds?" and "What do plants eat?" Variable scaffolding is provided for both kinds of inquiry. Graph and modeling software will be developed that can express data and relationships using text and vocalization as well as various representational formats. A total of twenty-five test classrooms in Acton, MA, Anchorage, AK, Maryville, MO, and Fresno, CA plan to participate in formative and summative testing of the materials.